Heterogeneous Specification Formalisms for Reactive Systems

Proposal Number: CCR-9988489
PI Name: Cleaveland, Walter R.
Institution: SUNY at Stony Brook
Title: Heterogeneous Specification Formalisms for Reactive Systems

This project will investigate heterogeneous, mathematically rigorous modeling
and analysis techniques for embedded software. The growing popularity of
embedded computer controllers in devices ranging from airplanes to
pacemakers to electric shavers points to the importance of cost-effective
methods supporting the software they run. Traditional specification
formalisms have emphasized homogeneous approaches in which all modeling and
analysis occur within one framework, such as Statecharts or temporal logic;
however, heterogeneous methodologies supporting multi-paradigm specifications
have strong practical motivations, and informal design notations such as UML
already provide superficial support for them. To enable heterogeneous systems
specifications to be analyzed in a mathematically rigorous manner, thereby
providing designers with feedback in advance of implementation, the project
will pursue these lines of inquiry: the development of a uniform theory of
operational and logic-based system specifications; the study of mechanisms for
composing component models given in disparate formalisms; the implementation
of automated tool support for verifying the correctness of heterogeneous
specifications; and the investigation of case studies involving avionics
systems and communication protocols. This research will enhance greatly the
capabilities of formal system modeling and analysis by providing a rigorous
basis for diverse embedded-software specification and verification
technologies to ``interoperate''.